Microbial Biochemistry and Genetic Regulation

This award provides funds to the Division of Medical Sciences at Harvard University to establish a Research Experiences for undergraduates SITE. The Division supervises Ph.D. training programs of the Graduate School of Arts and Sciences for students engaged in biological research in laboratories on the Medical School campus. This program is for a 10 week summer research experience for 9 undergraduate students who would work in the field of microbial biochemistry and genetic regulation. A research- related course, a student-faculty research seminar series, and a career development discussion series will accompany the laboratory research. Students, who will be recruited from a nation-wide pool with a particular emphasis on recruiting qualified minority students and women, will have the opportunity to carry out projects in the laboratories of any of 13 Division faculty who are participating in this program. The undergraduate will also be provided with opportunities to meet other majority and minority research faculty and graduate students.